Acquisition of Laser Ablation Deposition System

9601791 Celik-Butler The acquisition of a Laser Ablation Deposition system (LAD) is enabled. LAD has been demonstrated as a superior deposition technique for the fabrication of compound oxide thin films as compared to other available techniques such as sputtering and e-beam evaporation. The LAD will be placed in the Solid State Technology Laboratory which has the capability for semiconductor device fabrication including Si-MOS, Si micromachining, and semiconductor lasers. The proposed LAD system will become the only LAD system in the North Texas region. The LAD system will be primarily used to deposit semiconducting YBaCuO thin films for application as uncooled microbolometers and semi-insulating YBaCuO thin films for application as uncooled pyroelectric detectors. This work is supported by the NSF, ARO and Texas Instruments. The cost of the proposed LAD system project is $275,000 of which SMU will provide a 45% cost share. YBaCuO is well known for its superconducting properties. However more recently, the nonsuperconducting phases of YBaCuO are demonstrating themselves useful in a number of applications including uncooled infrared (IR) detection, the second harmonic generation of light, and photoconductive switching. The materials are attractive since they are stable in composition and properties and easy to deposit. One of the phases of YBaCuO is YBa2Cu3O6+x. As x is increased from 0 to 1, YBa2Cu3O6+x evolves from an insulator with a well-defined energy gap to a Fermi glass, and then through a metal-insulator transition to a metal. Simultaneously, the crystal lattice changes from tetragonal to orthorhombic. The oxygen content thereby determines the electrical and optical properties of a material. YBa2Cu3O6+x is a ferroelectric material with pyroelectric properties. In the semi-insulating phase, it has a low leakage current and is therefore suitable for application as an uncooled pyroelectric detector. In the semi-conducting phase, YBa2Cu3O6+x has a narrow band-gap, inheren tly low 1/f noise and a large change in resistivity with temperature (TCR=3.9%) making it suitable as an uncooled bolometer. Our preliminary investigations have shown that semiconducting YBa2Cu3O6+x uncooled bolometers offer higher responsivities (Rv = 6x104V/W) and detectivities than cooled superconducting YBa2Cu3O6+x bolometers. In addition, their performance is superior to other uncooled IR detectors including VO2 bolometers and PbTiO3 pyroelectric detectors. To date, the semiconducting YBa2Cu3O6+x IR sensitive material has been fabricated by simple rf sputtering at room temperature onto Si, SiO2 and Si3N4 substrates, showing material compatibility with a CMOS process towards the fabrication of micromachined, uncooled microbolometer arrays with focal plane signal processing resultant in a low cost IR imaging circuit. We believe that control over the stoichiometry of the YBa2Cu3O6+x thin films would be significantly improved by the use of LAD for the thin film fabrication. This would allow for greater reproducibility and allow for the stoichiomery to be optimized to produce even better performance. Therefore the acquisition of a LAD system would be a tremendous benefit to the project. Further, an LAD system would improve the capability of the laboratory allowing for future research projects in the fabrication of compound oxide thin films with linear and nonlinear electro-optic properties. Work in this area would compliment the semiconductor laser group and allow for the fabrication of integrated optic devices. In addition, projects would be initiated on the application of ferroelectric compound oxides to Si devices such as the gate insulator in DRAMs. Since, the proposed system will be the only LAD system in North Texas, it is anticipated other researchers will be attracted to the facility. Faculty at SMU have a very cooperative relationship with faculty at the University of Texas at Arlington, the University of Texas at Dallas, and the University of North Texas. In addition, a large number of companies are involved in the fabrication of Si and GaAs devices in the Dallas-Ft. Worth metroplex which may need access to a LAD system to test some concepts. The probability is high that external users will find the facility attractive one established. ***